EVOLUTIONARY CONFLICT AND PHENOTYPIC DIVERSITY IN SOCIETIES

Biological organisms display remarkable diversity in form and function. For example, individuals frequently belong to distinct functional classes, such as the male and female sexes. However, because individuals within species generally possess the same set of genes, the development of distinct classes is expected to be constrained. The goal of this research is to study the constraints on the development of distinct classes in social insects. Social insects represent excellent study systems because insect societies are composed of distinct functional classes such as the queen, worker, and male castes. In addition, social insects, such as bees, wasps, ants, and termites, have great ecological and economic importance. This research will analyze the physical forms, gene functions, and genome sequences of social insects to understand the importance of the shared genome on the development of distinct classes. The research will also include several broader impacts that will extend the influence of this research to educational activities aimed at training and educating the public. This research is significant because it will provide insight into the genetic mechanisms associated with the development of distinct functional classes and the causes of organismal diversity within species.
Phenotypic diversity is a hallmark of metazoan taxa. However, phenotypic evolution is constrained by intralocus conflict, which occurs when individuals within species possess traits that have a common genetic architecture. This research will explore intralocus conflict in social insects and determine if conflict has constrained phenotypic evolution in societies. Study of genetic conflict in societies is particularly interesting because individuals may experience both intralocus caste conflict, which occurs between the castes, as well as intralocus sexual conflict, which occurs between the sexes. This research will test intralocus conflict theory. First, the research team will determine genetic correlations for morphological traits in queens, males, and workers. Second, intralocus conflict will be studied at the molecular level by testing predictions about genetic correlations for gene expression phenotypes. Finally, evidence for intralocus conflict will be detected by examining population genomic variation. This program will also promote teaching, training, and learning. Research will be incorporated into university classes, city-wide activities, and disseminated in the popular media. Overall, this research program will result in one of the most thorough empirical investigations of intralocus conflict theory and provide insight into the mechanisms affecting phenotypic diversity.